Laboratory Frictional Studies of Fault Gouge: A Test of Hypotheses for Controls on the Updip Limit of the Seismogenic Zone Along Subduction Thrusts

The PI proposes to develop a structural model of the subduction thrust from the seaward edge of the subduction zone through the seismogenic zone with the geological conditions at the Nankai Subduction Zone as a constraint. The objective is to understand the progressive fabric development across the aseismic to seismic transition, to provide information that will help interpret geophysical images and guide experimental lab studies and assist in the interpreting of the drill hole data through the seismogenic zone. The PI will use ODP holes at the frontal part of the Nankai subduction zone and uplifted equivalent complexes on land.